CAREER: Adaptive and Scalable Resilience in Complex Networked Systems: Structural Backbones and Functional Robustness

This NSF CAREER project aims to develop new foundations for resilient networked systems, such as robot teams, infrastructure networks, and distributed learning systems, that must operate reliably even when information is corrupted, measurements are imprecise, or parts of the network fail. Today’s resilience methods are often brittle: they can work within prescribed limits, but performance may collapse unpredictably once faults or attacks exceed those limits. Making systems resilient can also require costly communication, computation, or physical redundancy. The project will bring transformative change by developing adaptive and scalable resilience methods that allow performance to degrade gracefully while maintaining rigorous performance guarantees under uncertainty, faults, and attacks. This will be achieved by creating new mathematical tools that let agents make reliable local decisions from imperfect information, identifying hidden robust structures in sparse networks, and determining which information and connections must be protected to keep a system functioning. The intellectual merit of the project includes a new theory of functional and structural resilience that provides rigorous performance guarantees under adversarial and uncertain conditions, along with algorithms that remain accurate even when faults and attacks exceed the thresholds where current methods fail. The broader impacts of the project include safer and more reliable infrastructure, robotics, and learning systems; research-driven educational modules and hands-on multirobot activities; and student research experiences that help prepare an interdisciplinary STEM workforce for national needs in security and public welfare.

The project will leverage tools from discrete geometry, graph theory, and control theory to address three integrated goals. First, it will develop resilient data-aggregation methods, grounded in combinatorial geometry, that allow agents in a network to perform reliable local computations even when the number of faulty or adversarial neighbors exceeds classical limits and measurements are noisy or imprecise. Second, it will develop scalable graph-theoretic methods to identify densely connected subnetworks, or “pockets of resilience,” and leverage them to maintain network performance. It will also show how a small number of trusted agents can enable sparse networks to emulate the robustness of dense ones. Third, it will establish a backbone framework to determine the sparsest critical substructure whose preservation guarantees that essential control properties survive damage elsewhere and will examine whether this same backbone preserves accuracy in graph machine learning. Together, these advances will transform resilience from a fragile threshold into a tunable, scalable design principle, with theoretical results validated on robotic, infrastructure, and data-driven testbeds.